Stochastic Theory of Turbulent Combustion

This award supports exploratory work in the analysis and numerical simulation of stochastic partial differential equations with colored noise. The study is motivated by the modeling of turbulent combustion in jet engines.

This Small Grant for Exploratory Research (SGER) facilitates a program of analytical and computational studies to improve the safety and performance of jet engines. The focus is on the turbulent combustion in the engines and their afterburners, chambers where unburnt fuel combusts. The project aims to use recent advances in the theory of stochastic partial differential equations and complex systems to develop a model for turbulence that is applicable to jet engine combustion. The project is a step towards cheaper, safer, and more environmentally friendly air travel.